Distributed Manipulation: On-Line and Off-Line Algorithms and Systems

This research investigates the algorithmic and systems issues that arise in on-line and off-line distributed manipulation and organization tasks with cooperative teams of robots. The objective is to develop a framework in which it is easy to synthesize and reason about complex strategies for manipulating and organizing objects in structured and unstructured environments, with teams of robots. Distributed manipulation systems can be used for tasks that require reorganizing large objects in an environments, for example waste cleanup, mine sweeping, and furniture moving. Manipulation and organization can be formulated as placement problems. In a distributed placement problem multiple robots combine their skills cooperatively to move objects so as to satisfy a desired global property of the environment (for example, all the movable objects are placed in a designated area.) The research agenda is to develop (1) models for the information requirements of robot tasks; (2) algorithms for single robot manipulation strategies that relay on given information requirements; (3) a method of analyzing the structure and power of such algorithms; (4) a method for composing reliable single robot manipulation algorithms to obtain fault-tolerant cooperative manipulation protocols with performance guarantees; (5) a method for establishing trade-offs between sensing, communication, planning, and learning in distributed systems of robots; and (6) to implement, design, and test distributed manipulation systems that use (1-5)